Topological and analytical invariants of singularities

Proposal: DMS-0088950

PI: Andas N\methi

Abstract: An invariant of a normal surface singularity is
topological if it is a 3-manifold invariant of its link, or
equivalently, if it can be determined from the combinatorics of its
minimal resolution graph. The driving question of the proposal is: when are the
geometric genus and the Hilbert-Samuel function topological?
The proposal has three parts. The main message of the first part is that for those Gorenstein singularities whose link is a rational homology sphere, the work of Artin and Laufer on rational, respectively on minimally elliptic singularities can be continued.
The optimism is partly based on the author's recent work on Gorenstein elliptic singularities with rational homology sphere links. For these singularities
the author proved among other facts that their geometric genus
is topological: it is exactly the length of the elliptic
sequence (in the sense of S. S.-T. Yau).
The first step in any general investigation is the testing of the
conjectures in some non-trivial particular cases. In the second part of the
proposal the case of suspension singularities is discussed in more details.
The third part of the proposal deals with higher dimensional
generalizations of the Artin-Laufer program.

Local analytic spaces are defined by locally defined analytic functions,
in particular they carry a lot of analytic invariants. A very important
question in their classification is the following: can these analytic
invariants be determined from the topological description of these spaces?
In the case of complex surface singularities, the topological structure
is determined from the link of the singularity which is an
oriented 3-manifold. The goal of the project is to describe some of the
analytic information of the singular space in terms of this 3-manifold
(in those cases when it is possible).